Postdoctoral Research Fellowship in Plant Biology

9403959 Evans This is an individual Postdoctoral Research Fellowship in Plant Biology award. The applicant received his Ph.D. from University of Pennsylvania. For his Ph.D. thesis research, he worked in the area of developmental biology in plants. He will carry out his postdoctoral fellowship research in the laboratory of Dr. Jerry Kermicle at University of Wisconsin. The proposed research is entitled "Genetic analysis of female gametophyte development in maize", which will expand his scientific expertise to genetics and evolutionary biology.